Effective Science Teaching for English Language Learners (ESTELL): A Pre-Service Teacher Professional Development Research Project Across Three Universities in California

The Discovery Research K-12 (DR-K12) proposal Effective Science Teaching for English Language Learners (ESTELL): A Pre-Service Teacher Professional Development Research Project Across Three Universities in California is submitted for consideration for a full research and development project in the Frontier Challenge Strand a ? assuring all students the opportunity to learn STEM content. Project investigators will conduct an experimental design study on the impact of an ESTELL elementary teacher education designed to prepare novice teachers to teach science to English Language Learner (ELL) and a qualitative study on program implementation. The ESTELL project builds on prior research in two areas: the integration of inquiry science, language and literacy practices; and the CREDE Five Standards for Effective Pedagogy which have identified a common set of teaching practices associated with increased achievement of ELL. This project will adapt this approach to pre-service teacher preparation. The ESTELL model of pre-service teacher education will be integrated into every stage of teacher preparation and induction from the science teaching methods courses in the post-baccalaureate credential programs, to the clinical setting of student teaching and the first two years of teaching. Researchers will focus on three research questions: (1) What is the impact of the ESTELL teacher education program on novice teachers beliefs and practice? (2) What is the relationship between the use of ESTELL by program graduates and the science achievement of 4th-5th grade students? and (3) What is the impact of the ESTELL program on the beliefs and practice of the participating science methods faculty, teacher supervisors and cooperating teachers?